Oceanographic Instrumentation for the R.V. Weatherbird II

9530925 Hansell The PI proposes to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used abroad the R/V Weatherbird II, a general purpose research ship owned and operated by the Bermuda Biological Station for Research (BBSR), Inc., a Bermuda based United States non-profit research and education institution. The proposal concentrates on increasing the reliability and extent of data collection capabilities aboard the Weatherbird II. Instrumentation includes a relative humidity sensor and precipitation gauge for the ships IMET system; backup dissolved oxygen sensor and pump for the CTD package, along with an altimeter for the rosette; backup thermosalinograph, remote temperature sensor and diaphragm pump for the underway system; and a dynamic color correction capability for the liquid scintillation counter. ***